NSF Student Travel Grant for 2022 IEEE International Conference on Communications (ICC)

IEEE International Conference on Communications (ICC) 2022, sponsored by the IEEE Communication Society, is to be held in Seoul, South Korea, on May 16 – 20, 2022. IEEE ICC is a premier international conference of the IEEE Communications Society and a major event in wireless communications and networking that brings researchers and practitioners of every aspect of digital/wireless communications and networks together to present up-to-date results and achievements in the field. It is widely attended by researchers and practitioners in the field. Participation in events like this is an extremely important part of the graduate school experience, providing the opportunity to interact with more senior researchers and to be exposed to leading edge work in the field. Participants have the opportunity to present their work, attend panel and keynote sessions, and interact with hundreds of other leading-edge researchers in the field. Considering the pandemic situation, the conference will be held in a hybrid of both in-person and virtual formats.

This proposal provides travel support for approximately twenty graduate students in the United States to attend this premiere conference. The travel awards will target first-time attendees and under-represented minority students, since attending conferences is an important part of their educational experience, and they often have limited travel funds. The research community and the Engineering workforce benefit from the improvement of students in the pipeline, and the introduction of new researcher perspectives.